Special Session and Young Investigator Support

9414061 Guilbeau This proposal from Arizona State University requests partial support for the 1994 Annual Fall Meeting of the Biomedical Engineering Society (BMES) to be held on October 14-16, 1994 on the Arizona State University Campus in Tempe, Arizona. Funding from the NSF will be used for travel support for invited speakers to the special sessions on Cost Effective Health Care Delivery Through Engineering and Rehabilitation Engineering. The symposium focuses on cardiopulmonary engineering, cardiovascular science and engineering, cellular and tissue engineering, medical imaging, neural engineering, orthopedic engineering, and rehabilitation engineering. The aim of the conference is to bring together biomedical engineers to promote the increase of biomedical engineering knowledge and its utilization. Presenter participants in the symposium are world leaders in biomedical engineering. Funding requested from the NSF would provide partial support for invited participants in Cost Effective Health Care Delivery Through Engineering and the Rehabilitation Engineering sessions. The results of the conference will be recorded in a Proceedings, which will be sent to all conference participants and to related organizations and agencies, thereby making symposium results available to a large audience. ***